The Origin of Matter in the Universe: Nonequilibrium Field Theory and Inflationary Cosmology

One of the greatest challenges of modern cosmology and particle physics is to
explain the origin of matter in the Universe. How did the matter that makes galaxies,
stars, and ultimately living beings originate in the primeval fireball described by the
Big Bang model? Once the ingredients are there the leptons, quarks, and gauge
fields comprising the Standard Model of particle physics Big Bang cosmology
is very successful at explaining the formation of the first light nuclei and atoms.
The challenge lies in understanding the mechanisms responsible for generating the
particles of the Standard Model themselves: their origin and the ubiquitous excess
of matter over antimatter.
Observations firmly support the notion that the early Universe underwent a short
period of superluminal (exponential) expansion known as inflation. The origin of
matter is traced to the end of this inflationary era, when the primordial field that
drives inflation transfers its energy into matter fields. This transfer is dramatic: it
effectively models the hot Big Bang and is believed to have occurred in at least
two phases, known as preheating and reheating. The goal of this proposal is to address both the origin of matter and its excess over antimatter as inflation transitions into the hot Big Bang model. The PI plans to analyze in detail the nonperturbative dynamics of the preheating and reheating stages for a variety of models, using analytical and numerical
techniques of nonequilibrium field theory. Based on this analysis, the PI hopes to propose
several observational consequences of pre/reheating for different models, including:
the number of e-folds or efficacy of the inflationary phase; the generation of net
baryon number; and the production of a stochastic background of gravitational
waves.